Workshops on Integrated Engineering Workstations for Science& Engineering Faculty

Two workshops on Integrated Engineering Workstations for Science and Engineering Faculty explore computer-controlled experiments in undergraduate laboratories. Participants develop experiment and class material that emphasizes creative problem-solving ability appropriate to projects at the home institution. Workshop faculty provide follow-up consultation through electronic mail. //